Approximation Algorithms for Networks

This project focuses on NP-hard optimization problems arising from the rapid development of Computer
Networks. This research proposes to investigate the development of efficient combinatorial algorithms
for wired and wireless networks. The project also involves improving the existing algorithms for
fundamental graph optimization problems that have direct applications in networking. The PI proposes
to concentrate on fast generation of approximate solutions. In addition, the algorithms for wireless
networks must use only local information.
Specifically, the PI intends to accomplish the following research items in this project:
.. devise efficient approximation algorithms to increase bandwidth utilization in quality-of-service
multicasting.
.. devise efficient distributed algorithms for maintaining connectivity in ad hoc wireless networks
and sensor networks, while minimizing the energy consumption and extending the network's
lifetime. The PI will analyze the communication complexity of the algorithms and their behavior
with imprecise input data and node failure. The research will start by concentrating on static
networks, while always considering extensions to mobile networks. Once the problems arising
from static ad-hoc wireless networks are better understood, the PI will concentrate on mobility.
.. devise efficient approximation algorithms for several graph connectivity problems.
.. identify and solve new optimization problems arising in the next generation of computer networks.
The new methods will be grounded on provably good algorithms with guaranteed worst-case performance,
and extensive empirical studies that thoroughly test the algorithms' efficiency in simulations
on available industrial data. The developed algorithms and their implementations will be widely distributed
to practitioners in order to enable a more complete understanding of the optimization problems
in these application areas. The intelectual merit of this proposal consists of advances in the techniques
of design and analysis of algorithms and the understanding of the underlying combinatorial structure
of several graph optimization problems.
The main educational goal of this project is to improve the preparation of graduate and undergraduate
CS majors at Illinois Institute of Technology (IIT) in theoretical computer science. The grant would
be used to support a research group of graduate and undergraduate students.
The project's impact will be increased by supporting seminars and workshops which benefit a diversity
of students and researchers. The PI's service agenda is centered on recruitment of talented students
for theoretical research, as part of the broader impacts of the proposed research.